U.S.-U.K. Cooperative Research: Determination of Gas Phase Structures of Molecular Precursors to Solid State Materials by Electron Diffraction

This two-year award will support U.S.-U.K. cooperative research between Mark J. Hampden-Smith of the University of New Mexico and David Rankin of the University of Edinburgh. This interdisciplinary project involves solid state materials preparation and chemical synthesis and characterization. The objectives are to determine the gas phase structures of a variety of volatile and new organocopper precursors, perform thermal decomposition studies and surface studies of deposited copper films. The research is focused on deriving fundamental insight into the formation of high- quality, patterned copper thin films. In studying the gas phase aspects of the organocopper precursors, the investigators will provide important new information about the gas phase and gas surface reactions. Dr. Hampden-Smith brings to this collaboration his expertise in the synthesis and characterization of organocopper precursors in solid state and in solution. His group will synthesize the necessary compounds at the University of Mexico for the gas phase studies. This is complemented by the unique instrumentation at the University of Edinburgh and Dr. Rankin's expertise in gas phase structural characterization using electron diffraction techniques. Together, their research may allow the deposit of purer, low temperature, better quality copper films on surfaces than is currently possible. //